Sensors: A New Class of Devices Based on Interfacial Effects in Metal-Semiconductor Hybrid Structures

1. Intellectual Merit
We have recently demonstrated experimentally that hybrid thin film structures possessing
an appropriately selected geometric interface between a semiconductor and a metal display a
new phenomenon that has been labeled extraordinary magnetoresistance (EMR) and that InSb
devices with either internal or external Au shunts exhibit room-temperature EMR as high as
100% to 750,000% at magnetic fields, ranging from 0.05T to 4 Tesla, respectively. These
nonmagnetic structures are readily fabricated for practical sensor applications such as read-heads
for ultra-high density magnetic recording and rival the performance of conventional sensors
based on the giant magnetoresistance (GMR) effect. We have also demonstrated that EMR
devices are scalable from macroscopic to nanoscopic dimensions in the range of millimeters to
20 nanometers. It has recently been realized that EMR is but one example of a broad class of
geometry-driven interfacial effects in hybrid semiconductor-metal structures. Now a second
example of such interfacial phenomena, extraordinary piezoconductivity (EPC), has also been
demonstrated by Solin et. al. Here we propose to establish proof of principle, elucidate the
underlying physics and develop prototypes of a new class of ifEXXly sensors in which the
sensitivity of the metal-semiconductor interface to external perturbations gives rise to similar
extraordinary responses. In the case of EMR we propose new prototype array structures for
ultra-high resolution magnetic sensing and magnetic imaging. For EPC we propose to clarify the
physical principles and to develop prototypes of ultra sensitive and robust strain and pressure
sensors. For extraordinary electroconductance (EEC), extraordinary thermoconductance (ETC)
and extraordinary optoconductance (EOC) devices we will first establish proof of principal and
thereafter move to the prototype stage.
All EXX effects are critically dependent on the geometry and physical properties the
metal-semiconductor interface. We have already shown that the finite element method (FEM)
for modeling EMR provides excellent ixno adjustable parameterl" agreement with experiments
while revealing the current and potential distribution in the device in exquisite detail. Therefore,
we propose collateral investigation of these novel EXX effects using FEM modeling since it
incorporates geometrical issues, while accounting for the attendant complex boundary
conditions. FEM is also ideally suited for the design optimization of the structures in order to
enhance sensitivity.
2. Broader Impact
It is anticipated that the proposed research will have broad beneficial impact on
education, technology, and society. It will expose graduate and undergraduate students from a
number of disciplines/departments to new experimental techniques, basic physical principles,
and novel fabrication methods related to EXX sensor development thus providing
interdisciplinary skills that will be mandatory for the next generation of the nation's scientists
and engineers. Research results will also be integrated into the undergraduate course work at
both institutions and into a special topics course for ioMagnetlo high school students. The
proposed research will enhance the opportunity for adding women and under-represented
minorities to the Washington University faculty through hiring programs currently chaired by the
PI. It will also significantly augment the development of a new campus-wide Materials
Initiative/Center that is lead by the PI. EXX sensors could impact a variety of diverse
technologies including sensors for medical applications, manufacturing quality control,
automobile safety, pollution-control and fuel-efficiency, thermal imaging devices and consumer
electronics with obvious social, medical and economic benefits.